Model Proj: WEPAN Regional Centers: A Proposal for Continued Support

The Women in Engineering Advocates Network (WEPAN) is a national organization that provides access for women to careers in engineering by increasing the number of women enrolling and successfully completing degrees in engineering at both the undergraduate and graduate levels. WEPAN provides technical assistance to educational institutions desiring to initiate or expand Women in Engineering Programs. WEPAN is involved in: 1) providing technical assistance to aid and encourage engineering schools in establishing or expanding Women in Engineering Programs; 2) establishing executive committees in each of the three regions (western, midwestern, and eastern United States) to facilitate training for institutions and to establish partnerships between educational institutions and industries; 3) conducting regional training seminars; 4) furthering development of the National Evaluation of Women in Engineering Programs; and 5) continuing to provide leadership to the national WEPAN organization.